RIA: Novel Approaches for Numerical Signal Processing: Algorithms and Architectures

Liu The objective of this research is to develop efficient signal processing algorithms and architectures based on a new numerical matrix decomposition called the URV decomposition. The major advantage of the URV decomposition is that it provides as much information as the singular value decomposition but with much less computational complexity. Using this new numerical tool, signal processing algorithms that currently employ either the singular value or QR decompositions can be reformulated, leading to more efficient and robust implementations. Analysis and development of efficient URV-based signal processing algorithms will be conducted with applications to adaptive array processing, reduced rank signal processing, signal compression, multi-dimensional filter design, and image processing. VLSI architectures and parallel processor implementations will also be considered for high-performance signal processing using the URV decomposition.